Modelling the Spatial Dynamics of the Urban Homeless

Despite considerable attention in the last decade by social scientists focusing on problems of homeless persons in the United States, many significant questions remain unanswered. Among these are questions related to how changes in the levels and distributions of low-wage employment, housing, and services targeted toward the homeless affect the location patterns and movement of people without housing. This award will continue support from NSF for a project that is seeking answers to these questions through an extensive analysis of the structural, institutional, and individual factors that affect the number, character, and locations of homeless persons in Los Angeles. Newly available data sources will document how shifts in the provision of jobs and housing have affected the abilities of certain households to find housing. The locational distribution of homeless shelters and services will also be analyzed. This project will continue a valuable line of inquiry into the location and dynamics of a segment of the population that has been increasingly in the public attention. The empirical research will be valuable to those seeking descriptions of the number and circumstances of homeless populations, both in Los Angeles and elsewhere. The project's real value lies in its development of a fuller and more articulate theory of contemporary urban processes, with significant ramifications for population, social, and economic systems. Because a number of graduate and undergraduate students will be involved in this project (the latter because of a Research Experiences for Undergraduates supplement), the project also will provide a valuable opportunity for young scholars to involve themselves directly in basic social scientific research.